Project DAWN - Developing Alabama's Workforce Now

Project DAWN ("Developing Alabama's Workforce Now") is a partnership among Gadsden State Community College, Central Alabama Community College, Alabama Southern Community College, and three manufacturing centers of the Alabama Technology Network. The goal of Project Dawn is to produce a new associate of applied science curriculum in manufacturing technology, with the option of four specialties: (1) electronics; (2) industrial machine and tools; (3) textile and apparel; and (4) forestry, paper and chemical. Gadsden state Community College is conducting a pilot program with the following components: (1) assessment of manufacturing technology needs within Gadsden and Alabama; (2) investigation and study of exemplary manufacturing technology programs, including on-site visits; (3) development of a model curriculum, in cooperation with local industries; and (4) evaluation and dissemination of the results. This two-year pilot will produce four curriculum manuals, one for each of the optional specialties.